CAREER: Parasites, Pathogens and the Breeding Strategies of Social Insects

Colonies of most termite species are founded by a single male and female monogamous pair. In a few species, however, colonies can be established by up to 90 functional kings and queens. A series of experiments using the Neotropical termite Nasutitermes corniger will test if groups of multiple kings and queens are more successful in establishing new colonies than monogamous pairs when faced with disease producing microorganisms such as nematodes, fungi and bacteria. The number of infected kings and queens will be manipulated and their survival and success in establishing colonies will be compared to that of monogamous pairs. This research will provide an understanding of the evolution of breeding strategies in social insects and their mechanisms to cope with disease while living in large and complex societies.

This research has implications for the development of new and effective biological control methods against social insect pests, which may help reduce the need for toxic pesticides in the environment. Studying the interactions between pathogens or parasites and social animals increases the understanding of the effect that social behavior has on the transmission and infection rates of important emerging diseases such as SARS, Ebola and West Nile virus.